Advanced Seismic Damping Devices for Flexible Frame Buildings

Viscoelastic materials are one method of providing damping to structures when subjected to earthquake forces. Previous materials have degraded in stiffness and lost their effectiveness. This investigation is to devise a material systems which will not degrade as a result of heat generation.